Upgrading Chemical Instrumentation with Computers

Through this project, digital computers have been interfaced to four spectrometers in the department of chemistry to enable more students to accomplish more sophisticated studies with the instruments. Student learn more thoroughly how the instruments work and write programs that control and record data from the instruments. The students in the advanced chemistry courses designed and built some of the electronic circuits that are used for communication between the computers and the instruments. The upgraded instruments allow students to do experiments for classroom work and research that they could no do without the computers. In addition to the use of the computers with the instruments, they are able to write papers and work with a chemical data base on the computers. The institution is contributing to the project in an amount equal to the NSF grant.